Purchase of a Picosecond Laser System

Picosecond lasers afford the chemist a technique to probe ultrafast processes in molecules. A number of interesting phenomena occur with such intrinsically fast rates that picosecond lasers give the only viable means to directly study the kinetics and spectroscopy of these events. The Department of Chemistry of the University of Wisconsin will use this award from the Chemistry Shared Instrumentation Program to help acquire a picosecond laser system. The system will enhance chemical research in the following areas: 1) Picosecond studies of highly vibrationally excited molecules: unimolecular decomposition and photodissociation 2) Application of time-correlated single photon counting to local polymer dynamics 3) Optical second harmonic generation studies of organized dye monolayers at electrode surfaces.